Mathematical Sciences: A Study of Chemical Reaction-Diffusion Systems with Boundary Feed and/or Boundary Interface

The principal investigator will study a class of reaction- diffusion systems which arise in modeling various reaction transport processes across compartmental domains divided by semi- permeable membranes with special emphasis on multi-species models with complex kinetics. Such models arise in a variety of physical settings, with the most obvious example being the reaction-diffusion process within a finite chain of cells. The investigation of the formation of stable spatial patterns through boundary feeds is physically realistic and will lead to increased understanding to the development of spatial patterns in chemical models.